Advanced Training Institute in Social Psychology: Immersive Virtual Environment Technology

This Advanced Training Institute in Social Psychology will provide intensive training in the use of immersive virtual environment technology as a methodological tool for social psychology. Institute Fellows will receive appropriate methodological, technology, software, and data collection training to enable them to use state-of-the-art immersive virtual technology to perform social psychology experiments. The advanced training institutes will take place during summers at the Research Center for Virtual Environments and Behavior at the University of California, Santa Barbara.